Increasing Student Participation in Cluster Computing through IEEE Cluster 2010 Attendance

This proposal seeks $ 15,000 of funding to support around 20 students from US-based universities to attend the 2010 IEEE International Conference on Cluster Computing Conference by defraying travel and hotel expenses for them. The web page for this important conference, also known as CLUSTER2010, is http://www.cluster2010.org